Planning Grant: I/UCRC for Wind Energy, Science, Technology, and Research (WindSTAR)

Planning Grant for an I/UCRC for Wind Energy, Science, Technology, and Research (WIndSTAR)

1238307 University of Massachusetts Lowell; Christopher Niezrecki
1238314 Texas A&M; John Niedzwecki
1238302 University of Texas at Dallas; Mario Rotea
1238185 Iowa State University; Matthew Frank

The proposed Center for Wind Energy, Science, Technology, and Research (WIndSTAR) will aim to enhance national excellence in wind energy research and development that has direct relevance to industry, and to develop a cadre of diverse undergraduate and graduate students with world-class training who will support and eventually lead in the analysis, design, manufacture, installation, operation, and maintenance of wind energy systems. The research efforts will be anchored by the University of Massachusetts Lowell as the lead institution, partnering with Texas A&M, the University of Texas at Dallas, and Iowa State University.

Wind energy systems for electricity production are complex engineered systems that operate on land or over water to produce usable power. These systems consist of an array of wind turbines placed on appropriate support structures and interconnected to deliver electric power to the utility grid. The potential for land-based and offshore wind energy is tremendous, but to achieve this potential will require a coherent and industry-relevant research and development program that involves industry, academe and government. The proposed I/UCRC will address industrially relevant research to advance and support the development of wind energy systems with low-cost energy and high reliability. The partners intend to engage in a cooperative program of research and education in the following areas: A) Composites in Wind Energy, B) Foundations and Towers, C) Manufacturing and Design, D) Structural Health Monitoring, Non-Destructive Inspection, and Testing,E) Control Systems and Storage, and F) Wind System Planning, Siting, Operations, and Maintenance.

The proposed center will provide a forum in which wind turbine manufacturers, manufacturers of key components, suppliers of ancillary equipment, service companies, and wind project developers can work together to solve problems that are of mutual interest. In addition, the center will work to develop and integrate educational activities that enhance recruitment and retention of diverse student populations. The Center intends to collaborate with KidWind, which provides teaching materials for K-12 teachers, and manages regional and national challenges for team turbine design competitions. The center will provide a conduit for the transfer of ideas among KidWind, industry, and academe and will engage industrial partners to develop regional training programs between educators and industry to create a sustainable pipeline of future STEM workers with strong interest by women and underrepresented groups.